NSF Young Investigator

9457997 Winey This research explores the interdependence of structure and properties in complex systems, particularly systems involving copolymers. Using a comprehensive approach involving synthesis, structure and properties, this proposal addresses the fundamental questions of sequence distribution and non-universality. With the inspiration of nature's remarkable protein engineering, it will strive to develop the technological applications of copolymers and their blends to their full capacity. %%% ***